Flux Recovery, A Posteriori Error Estimation, and Adaptive Finite Element Method

The main purpose of this project is to develop, analyze, and test novel,
accurate a posteriori error estimators of the recovery type for various
finite element discretizations of a variety of elliptic equations and
systems arising from solid and fluid mechanics, including nonlinear
problems. The investigator and his colleagues plan to study two types of
recovery procedures: one is accurate only for the constitutive equation
and the other is accurate for both the constitutive and equilibrium
equations. Based on these recovered fluxes (or the stresses for solid
and fluid mechanics), they will study three kinds of estimators. In
particular, they will study an exact estimator on any given mesh,
including an arbitrary initial mesh, with no regularity assumptions.
Exactness on any given mesh implies that the estimator is ideally
perfect for error control (or the so-called solution verification) on
coarse (pre-asymptotic) meshes. No regularity assumptions in this
project mean that the only assumptions on the existence of the
underlying problem are required.
This is weaker than those required for approximation theory and much
weaker than those required by the current theory of the recovery-based
estimators. Therefore, the estimators can be applied to problems of
practical interests such as interface singularities, discontinuities in
the form of shock-like fronts and of interior or boundary layers. The
second part of the project is to establish convergence of adaptive
finite element methods based on the recovery-based estimators and the
newly developed estimators of this project.

A major problem with computer simulations of physical phenomena is that
all computational results obtained involve numerical error.
Discretization error can be large, pervasive, unpredictable by classical
heuristic means, and can invalidate numerical predictions.
A posteriori error estimation is a rigorous mathematical theory for
estimating and quantifying discretization error in terms of the error's
magnitude and distribution based on the current simulation and given
data of the underlying problem. This information provides bases for
solution verification and for adaptive control of simulation process:
adaptive mesh refinement, adaptive control of mathematical models and
numerical algorithms. Success in this project will provide accurate and
reliable a posteriori error estimators for a large class of elliptic
equations/systems arising from engineering, physics, aerodynamics,
atmospheric sciences, geology, biomechanics, material sciences,
nano-technology, and industrial applications. The development of the
exact estimator will enable error control on pre-asymptotic meshes and
predictable computation analysis. Error control on pre-asymptotic meshes
is of paramount importance for simulating physical phenomena in
engineering applications and scientific predictions with limited
computer resources.